Evaluation and Enhancement of the Fourier Method for Rapid Synthetic Seismogram Calculations in Heterogeneous Elastic Media

Project develops methods for computing synthetic seismograms using Fourier techniques. Calculations are for eleastic media, not the more simple acoustic assumption. Previous work had shown that the methods can make a computation 3 times as fast as an explicit finite difference algorithm. Project will verify the veracity of the method, perform selected modelling efforts for 2-dimensional structures, and apply the method to PASSCAL data from the QUACHITA, Arkansas experiment.